Persistence and Pattern Formation in Biological Systems

Shi
The investigator develops and studies some
reaction-diffusion models of population ecology and of pattern
formations of biochemical systems. The spatial distribution of
populations can be affected by depressed growth rate at lower
density, which is called the Allee effect. For instance, it can
be caused by shortage of mates, lack of effective pollination,
or harvesting. The main goal is to gain insight into the ways
that Allee and harvesting effects and dispersal behavior
influence the persistence and extinction of species and the
success or failure of biological invasions. New mathematical
tools in nonlinear elliptic and parabolic partial differential
equations and nonlinear functional analysis are developed to
study the complicated dynamics. Emphasis is on the nonlinear
phenomena that can not be obtained through linearization and on
patterns in higher spatial domains that can not be observed in
simplified one-dimensional problems. The project is guided by a
series of practical problems, from fishery management, animal
aggregation, and autocatalytic reactions. A second line of the
project is focused on a pattern formation mechanism, generalizing
the pioneer work of Alan Turing. A nonlinear and higher spatial
dimensional mechanism is established to refine Turing pattern
theory, which has been successfully applied to phenomenological
models, empirical substrate-inhibition systems, and autocatalytic
reactions.
One part of the project studies the impact of human
interference on the natural evolution of marine species. In the
second part of the project, the investigator considers the origin
of the generation of complex patterns found everywhere in the
nature, like seashells and spotty patterns on a zebra or a
leopard. These studies aim to understand and control many
important natural phenomena, such as the persistence and
extinction of commercial marine species, and complex pattern
formations in biochemical processes. Results of the project can
be helpful for formulating policy on managing commercial
fisheries and forests, and for developing new biotechnology
simulations of natural life forms.